Mathematical Sciences: Research in Differential Geometry andTopology

The principal investigator will study a variety of problems in differential geometry and differential topology. The main goal of the research is to develop a deeper understanding of global topological and geometrical properties of surfaces in R3 that satisfy some nice geometrical or variational principle. Particular emphasis will be placed upon: 1. The global geometry and topology of properly embedded minimal surfaces: existence theorems, topological obstructions, total curvature theorems, conformal structure, topological uniqueness, computation of the index of examples, extension of isometries, uniqueness of minimal graphs of logarithmic growth over noncompact domains, area growth estimates for ends. 2. Global geometry of constant mean curvature in R3 and hyperbolic 3-space. 3. Computation relevant to problems in the subject. 4. Geometry of isotopy surfaces in R3. A classical topic in geometry is the nature of surfaces of minimal area having a specified boundary, the so-called soap film problem, which can be illustrated by dipping a wire frame into a soap solution and examining the film formed when it is withdrawn. Ignoring gravity, such films are known to have Gaussian curvature zero everywhere. A slightly more general physical situation calls for surfaces with constant but not necessarily zero curvature. Problems about such surfaces abound, and while natural and often simple to state, they are surprisingly difficult and have inspired the creation of powerful methods drawing on diverse areas of mathematics. Such problems and methods are the heart of this project.